Operads, Group Actions, and Classifying Spaces

DMS-0206963
Clarence W. Wilkerson
James E. McClure
Jeffrey H. Smith

Wilkerson (in joint work with W. G. Dwyer of Notre Dame)
studies the classifying spaces of Lie groups and p-compact
groups with the goal of finishing the classification of
2-compact groups and their automorphisms. Wilkerson and
Smith study actions of finite groups on arbitrary finite
complexes. The goal is to construct a moduli space
that classifies actions with given fixed point data.
McClure and Smith will continue their work on chain
operads and chain models for homotopy theories. Specifically,
they propose to find a small chain model for the framed
little-disks operad, to show that the category of "unstable"
coalgebras over a certain chain operad is a model for HZ-local
homotopy theory of spaces, to give a similar model for
HZ-local spectra, and to create a chain model for the model
category of K(n)-module spectra. They also propose to
investigate the properties of a symmetric monoidal
structure on the category of cosimplicial chain complexes.
McClure uses the joint work with Smith to study the homotopy
theoretic properties of the Snaith splitting. He hopes
to find a simplified proof of the theorem of Goerss-Hopkins
theorem which gives the spectrum E(n) a commutative
multiplication. He also studies the rational homotopy
theory of equivariant spectra when the group is the circle.
Smith and Grodal are studying homotopy G-spheres. That is,
spaces that are homotopy equivalent to a sphere and have
an action of a finite group G. They hope to give a complete classification based on algebraic invariants of the group.
They also study the moduli space of homotopy G-spheres.

Homotopy theory is the most fundamental of all geometries.
It studies those geometric properties which do not change
no matter what continuous deformations are made. The "equality"
of donuts and coffee cups is a well known example. Yet,
surprisingly, geometry as studied by homotopy theory has
an intrinsic algebraic nature. The PIs study the
geometric properties of spaces using techniques
that come from algebra, with homotopy theory providing
the bridge between these different areas of mathematics.
In fact, all homotopy information of a space can be
described using algebra. The algebra is complicated
but homotopy theory gives a correspondence
between geometry and algebra that has many important
applications.